The Motor Cortical-Olivocerebellar Axis: A Multielectrode Study

LAY ABSTRACT IBN-9808353 Cerebro-Olivo-Cerebellar Pathways: A Multi-Electrode Approach The experiments of this proposal will have significant impact on the fields of cerebellar physiology, motor cortical physiology, and motor control. The role of the olivocerebellar system in cerebellar functioning has been the subject of many debates and several hypotheses. In order for the field to move forward it is necessary to determine which of these hypotheses, if any, is correct. The proposed experiments will provide critical tests of the assumptions underlying two of these hypotheses for the function of the olivocerebellar system, namely the proposal that the olivocerebellar system acts as a timing device for motor coordination and the idea that it functions as a comparator of intended and actual movements. The motor cortex and olivocerebellar systems are both critical for motor control. As such their activity must be coordinated. Yet most studies focus on the role of one or the other. The present experiments address this relatively unstudied question of how these two motor systems interact by investigating the response of the olivocerebellar system to motor cortical activity and the pathways that mediate these responses. In doing so they may alter our conception of the how the motor cortex functions. Currently motor cortex control of movements is thought to be exerted primarily via the corticospinal pathway, despite the fact that this pathway represents only a minority of the total motor cortical output. The experiments here begin to investigate the significance of the other motor cortical outputs by studying how the motor cortex influences the olivocerebellar system. Understanding the function of the cortico-olivocerebellar axis represents a step toward a more complete view of the motor cortex, one in which the motor cortex is not viewed as simply the last processing stage of the motor command before leaving the brain, but rather as one of a series of interconnected regions whose integrated activity underlies motor coordination.